U.S.-France Cooperative Research (INRIA): Advanced Computer-aided Design Tools for Robust Control Engineering

9311965 Laub This three-year award supports U.S.-France cooperative research in advanced computer-aided design tools for robust control engineering between Alan J. Laub of the University of California at Santa Barbara and Pascal Gahinet of the French National Institute for Research in Computer Science and Applied Mathematics (INRIA) at Rocquencourt. The objective of their research is to develop efficient, reliable, easy to use software for the design of the next generation of control systems. Specifically, the U.S. and French investigators will combine their complementary expertise to develop state of the art techniques and tools for robustness analysis and control design. Robust control theory addresses practical control engineering concerns with powerful state-space techniques and offers a variety of analysis and design tools. The current lack of reliable, easy to use computer-aided design packages is an obstacle to wider diffusion of robust control techniques in industry. The proposed research addresses this issue and deals with problems of generic interest to control engineers. The results will have widespread applications in aeronautical, chemical, electrical, and optical systems, among others. ***